Micromagnetics of Nano-structures

Small magnetic structures are being developed for
magnetic sensors (for example, exploiting the
giant magnetoresistance effect, or tunneling magnetoresistance)
for nonvolatile memories exploiting either the Hall effect or magnetotransport
effects and for storage on a nano scale.
They present challenges in design for controlling
the value and reproducibility of the switching field.
Temperature effects as well as fluctuation
of the grain structure on a mesoscopic scale become important.
At the moment, magnetic nonvolatile memories are being developed by
IBM-Siemans (Infinion) and the Motorola Companies.
The uniformity of the switching field is a major stumbling block in the
commercilaiztaion of high density nonvolatile magnetic memories.
At the moment the yield of addressable sites is very small.
Nearly all current micromagnetics calculations are carried out
at zero temperature and do not include the temperature effects.
In addition, very few systematic investigation were carried out.
We propose to study and develop a way to predict the device
characteristics and enable their optimum design
with techniques that we have developed over the last several years.
These include (a) calculations from an analytic point of view in
combination with a finite temperature Monte Carlo code that we have written and
optimized; (b) experimental studies of the switching field
characteristics of our in-house e-beam patterned submicron
structures.